Future Directions in Karst Research: A Workshop Proposal

Martin
0608945
Intellectual Merit The Karst Waters Institute plans to sponsor an interdisciplinary
workshop on Research Directions in Karst Research. This workshop is designed to
bring together biologists, biogeochemists, microbial ecologists, hydrogeologists, and
geomorphologists who have an interest in advancing all aspects of karst science. The
workshop will in part assess the current state of knowledge, but its primary function will
be to identify gaps in that knowledge and to describe (and write down) a road map for
closing those gaps. The workshop discussions will include questions from disciplines
outside of karst science (e.g. paleoclimate, microbiology) that can be addressed in karst
areas. The workshop is not intended to be a meeting at which only recent scientific
findings are discussed; instead, the workshop will be tightly structured leading to
identification of the critical science questions to be investigated over the coming decade.
The workshop is tentatively planned for three days in Fall of 2006 with tightly
orchestrated logistics. Following a short introductory plenary session, the participants
will be broken into disciplinary groups to discuss the important current science questions
within their specialties. Three plenary sessions will be interspersed with the disciplinary
break-out sessions throughout the workshop to allow cross-disciplinary discussions and
integration of topical science questions. At the end of the workshop and while still on
location at the workshop venue, the key participants (disciplinary leaders and workshop
conveners) will write the initial draft of a report outlining the state of the science in karst
research and focus on what questions should be investigated over the next 10 years. The
final draft of the report will be completed by the workshop conveners within several
months of the meeting
Broader Impacts The workshop should positively impact the human resources of a
variety of disciplines including karst science, hydrology, microbiology, and ecology. The
funding requested here will be used to offset travel and per diem expenses incurred by the
participants, with the primary support going to students, junior faculty and disciplinary
group leaders. Efforts will be made to include under-represented groups in the workshop.
The workshop will be advertised in several professional outlets including web resources,
EOS, Geotimes, GSA Today, and Bulletin of the Ecological Society of America to assure
broad interdisciplinary participation. Additional funding is being requested from other
agencies and KWI has allocated $10,000 toward the workshop for travel support,
advertising, publication costs and other incidental expenses.